CIF:Medium:Convex Optimization for Blind Inverse Problems

One of the fundamental tasks in processing sensor and imaging data
is to solve an inverse problem, determining the nature of some
fundamental structure that produced that data. Such problems are
often underdetermined, meaning that the number of unknowns exceeds
the number of observations, and these problems are even more
complicated in the blind setting, where the fundamental structure
may undergo some unknown transformation en route to the sensor.
This project considers a number of such blind inverse problems,
including non-stationary deconvolution, where an unknown point
spread function changes over time; multi-band signal
identification, where line spectrum estimation is extended to
signals with multiple narrow frequency bands; super-resolution
radar imaging, where extended and accelerating targets may cause
unwanted spreading in the delay-Doppler space; and simultaneous
blind deconvolution and phase retrieval. Conventionally, all of
these problems have been studied separately. This project
investigates all of the problems jointly under a unifying
optimization and analysis framework.

By modeling unknown transformation operators using subspaces, the
investigators transform each non-convex inverse problem into a
linear inverse problem of recovering a structured signal. This
signal is a parsimonious mixture of lifted atoms generated by the
original atomic set, allowing the investigators to enforce its
simplicity using a new atomic norm. The investigators develop novel
analysis techniques to demonstrate the optimality of this framework
by deriving sampling complexities that achieve the
information-theoretical limits, calculating mean-squared denoising
errors that match the minimax rates, and developing parameter
estimation bounds that approach the Cramer-Rao bounds. The project
builds on the investigators' combined expertise in signal
processing, convex optimization in continuously parameterized
inverse problems, and geometric modeling.